Dissertation Research: Narrative Among the Severn Ojibwe

The proposed research project will analyze the expressive and sociocultural functions of narrative in Native American oral traditions. Specifically the student will work with the Severn Ojibwe of northern Ontario and northeastern Manitoba, Canada. Ojibwe is one of the most viable indigenous languages in North America today. The project will look at the formal linguistic aspects of oral tradition within the social context of an Ojibwe community. This study will provide an empirical, discourse-based ethnography of one of the most conservative Native American speech communities in North America as well as linguistic information on a little studied group. It will also help anthropologists and linguists understand the place of principals of organization of oral narrative in comparison to other forms of discourse in cultural life.